International Taxation and Factor Allocation

The purpose of this research is to analyze the effects of the tax system on the international location of business activity and the employment of productive factors such as labor, capital, and R & D. Tax effects are analyzed in two contexts. The first is the location, foreign and domestic, of the R & D activities of U.S. multinational firms. Owing to particular aspects of U.S. tax changes in the 1980's, the tax law introduced firm-specific incentives for some U.S. firms to reduce their domestic R & D expenditures and locate some of their R & D activity abroad. The research uses the National Science Survey of R & D activities to investigate the extent to which firms responded to these incentives. The second context is the location decision of foreign firms doing business in the U.S. Foreign investors from certain foreign countries are likely to be insensitive, or at least less sensitive than other investors to U.S. tax obligations. Tax rates vary considerably between states in the U.S. The study will determine the extent to which foreign investors respond to differences in state corporate income tax rates, in order to identify the features of foreign income tax systems that make foreign investors responsive to local tax conditions.